Development of Undergraduate Courses in Numerical Simulation and Experimental Verification of Air Quality Principles

A model undergraduate laboratory course is developed to teach the principles of air quality. The interdisciplinary course will integrate fundamental concepts with numerical simulations and experimental measurements. Students in the course will be provided with rigorous classroom instruction, participate in the design and operation of experiments, and develop an appreciation for the comparison of modeled and experimental results. The sizes, properties, and removal mechanisms of particles suspended in the atmosphere will be investigated with aerosol particle sizing, filter sampling, and aerosol generation systems. Gaseous pollutants will be measured by gas monitors. Students will explore the link between pollutant concentrations and meteorology by coupling pollutant data with measurements from meteorological instruments. A computer workstation will be used to collect, store, analyze, and graph data. The computer will also be used for numerical simulation and graphical illustrations of pollutant emission, dispersion, transformations, and transport. This state-of-the-art air quality principles course will also be a model for interdisciplinary teaching. Undergraduates participating in the course will receive a unique education in air quality principles, numerical simulations, and laboratory techniques that will provide them with the skills needed in graduate school and in their future careers.